QnTM: EMT: Self-Correcting Fault-Tolerant Quantum Computers

Building a quantum computer is widely considered one of the great experimental and intellectual
challenges for physics and computer science over the next few decades. This proposal
aims to jump-start this process by designing quantum devices whose inherit physics enforces self-correction of the quantum errors arising due to decoherence, imprecise device fabrication, and
faulty quantum control.

Intellectual merit: Understanding how robust computation can emerge from simple physical
systems is one of the great challenges addressed by our proposal for self-correcting quantum
computers, but this problem is ubiquitous across many fields, including both nanotechnology and
the biological sciences, where higher level function emerges from noisy constituent components.
Further, the substance of a self-correcting quantum computer will represent a new phase of matter
for quantum many-body systems, and insights gained in this proposal are likely to be essential to
understand the properties of many other quantum many-body systems.

Broader Impact: Since the ideas of self-correcting quantum computing have the potential to
revolutionize how we conceive of building a quantum computer, the broad impact of this proposal
will be disseminated to educators and journalists in workshops and public lectures. In addition development
of a seminar and courseware bridge the gap between theoretical fault-tolerance and the
fault-tolerance of physical devices will be pursued. Finally, this proposal would further enhance the
education and interdisciplinary research environment at the University of Washington by bringing
one of the PIs (Bacon) to the campus, who naturally rests between the Computer Science, Physics
and Chemistry departments.